Curriculum Development - Manufacturing Systems

This is a joint project of the New Jersey Institute of Technology as lead institution for the North/Central New Jersey and Camden County College as lead institution for the Southern New Jersey CIM Consortia. The consortia operate fully articulated programs aimed at the AAS and BSET degrees in Manufacturing Engineering Technology. The consortia consists of 13 community colleges and NJIT in the North/Central; Camden County College, 5 other community colleges and NJIT in the Southern. Articulated curricula of the two consortia include a two course sequence in Manufacturing Systems. This sequence is critical to the success of the program. Significant deviations in course content and emphasis among the member colleges have been noted. This project will solicit input from the manufacturing industry on required skills which should be attained through the first course of the two-course sequence. During a summer Curriculum Development Institute, selected faculty members will develop model curricula and training modules. The project will also identify possibilities for sharing of laboratory resources in support of the model.